Analytical and Experimental Studies of Thermal Elastohydrodynamic Lubrication of Point Contacts

Theoretical and experimental techniques will be developed to calculate and measure conditions at line and point contacts between sliding surfaces which are lubricated by either Newtonian or non- Newtonian liquids. Both smooth and rough surfaces will be studied. THe conditions in questions are temperature and pressure distributions and induced mechanical and thermal stresses. //